Experimental Analysis of the Dynamic Effects of a Refuge

This research is aimed at determining the consequences of a physical refuge upon the dynamics of a predator-prey system. Red scale is pest of citrus that is controlled by the parasitoid Aphytis in southern California. A refuge population of scale exists, to an extent that varies among cultivars, in the interior of the citrus tree. Citrus cultivars also vary in the scale load they carry on exterior foliage and fruit. The hypothesis to be tested is that a key to the stability of scale density on the foliage is the extent to which the refuge population is developed. An extensive survey of citrus groves will be conducted to test this hypotheses in which both the refuge and exterior populations will be sampled. A series of experiments aimed at providing a mechanistic explanation for between-cultivar variation in terms of mortality due to natural enemies and crawler migration rates will be done. Using this information, a model that predicts the influence of refuge populations on exterior populations will be developed. Red scale-Aphytis interaction is considered a model system for studying the effect of a physical refuge on population dynamics. The impact of the refuge in terms of effect on population size will be assessed and the factors determining the contribution of the refuge to total recruitment will be quantified.